Engineering Research Center for Optoelectronic Computing Systems

The University of Colorado and Colorado State University will establish an Engineering Research Center with the goal of creating optoelectronic devices and systems for computing signal processing and artificial intelligence. Multidisciplinary research thrusts will include: (1) the design and fabrication of a bit-serial optical computer as a test-bed for determining device reliability and functional complexity; (2) fabrication of novel devices using new materials and processes; (3) the development of a general methodology for identifying optoelectronic signal processing systems; and (4) the design of symbolic computers and associative memories for optical artificial intelligence.